Synthesis and Characterization of Fullerene Materials

Carbon-based fullerene compounds are being investigated by a range of physical characterization techniques. These include electrical and microwave transport measurements, magnetic susceptibility measurements and structural investigations using synchrotron radiation. These measurements will enhance fundamental understanding of the physical and structural features that underlie the interesting superconducting and magnetic properties of these materials.